Presidential Young Investigators Award: Combustion in Boundary Layers and Particle-Laden Flows

The principle areas of research involved in this PYI award are the application of optical diagnostics for measurements in practical engineering systems involving combustion in droplet and particle laden flows. The specific focus is on the development of non-intrusive optical methods to study particle transport, heat transfer, and mass transport through boundary layers in two-phase flows. A burning droplet is typically 0.2 mm in diameter surrounded by a 2 mm envelope flame. One of the most powerful optical probes is based upon the coherent anti-Stokes scattering of laser light by gas molecules within a cylindrical volume about 0.1 mm in diameter by 2 mm long; so that to apply this method to droplet flames the probe volume must be reduced an order-of-magnitude. Methods to accomplish this increase in spatial resolution will be explored. Optical diagnostics are ideally suited to boundary layer measurements because typical boundary layers are sensitive to perturbations caused by physical probes. Application of optical diagnostics is difficult, however, because the physical dimensions of the boundary layer require extremely high spatial resolution. The research will be centered on this problem, with applications to heat transfer to solid surfaces in combustion engines, rapid solidification in molten metal sprays, particle attrition and deposition on surfaces, and boundary layer heat transfer in supersonic flows.